Paleoindian Carbon Isotope Analysis

Dr. Buikstra will obtain carbon isotope determinations on a sample of 120 human skeletal remains recovered from archaeological sites in the midwestern United States. Because different kinds of plants have different carbon isotope signatures and these are reflected in skeletal composition, it is possible through chemical analysis of bone to make dietary inferences. For students of eastern North American prehistory, such analyses have provided new insight concerning the role of corn in late prehistoric peoples. Although traditional wisdom links this resource closely with the development of major urban centers after A.D. 1,000, recent stable carbon studies have called this association into question. It appears that corn may have been significantly less important as a foodstuff during this period than assumed. It may also have been relatively less important at Cahokia - the largest known Mississippian regional center - than in contemporary frontier communities. Dr. Buikstra will focus on Cahokia, which is located near St. Louis and was occupied between A.D. 1,000 and 1,400, and analyze 68 samples. These will be compared with remains from later nearby cemeteries, as well as from sites located near the Central Illinois River valley. Archaeologists generally assume that a close relationship exists between dependence on agriculture and the development of complex societies. This research is important because it re-evaluates this question and in so doing will provide insight into what leads to the development of complex societies such as our own.